Mathematical Sciences: Computational Modelling of Hyperbolic Heat Transfer and Nonlinear Transport Problems

This research is concerned with conservation laws arising in continuum physics and transport processes modelled by discrete velocity models of the Boltzmann equation. The emphasis will be both on the analysis and on the development of effective computational algorithms for the modelling of hypersonic heat transfer with phase change problems.